Study of Electromagnetic Structure of Light Pseudoscalar Mesons via the Primakoff Effect

This proposal requests funds to support the North Carolina A&T
Experimental Nuclear Physics groups students and senior personnel to
work on the PrimEx experiment. Our group is currently playing a leading
role in the PrimEx collaboration to develop and construct a
state-of-the-art experimental setup, to perform a precise measurement of
the neutral pion lifetime at Jefferson Laboratory (JLab). Because the
neutral pions are the lightest two quark system in nature, the
prediction of theory is the most accurate and direct for this process.
The present experimental knowledge of this decay rate is at the 10%
level, which is about one order of magnitude poorer than the theoretical
uncertainties. The PrimEx experiment at JLab, will significantly improve
the experimental uncertainties associated with all the past
experiments.

This work will involve three undergraduate and three graduate students
to work and to be trained on this project. It will provide them with
unique research opportunities in experimental nuclear physics, and
therefore will have a strong impact on their training and education.
The program is highly interdisciplinary and includes work with both
hardware and software (i.e., electronics, nuclear detector systems,
computer simulation, and data analysis). It will allow them to work in
a state-of-the-art facility and interact with scientists from other
nationally recognized universities. Thus, it can be very effective in
attracting African Americans and other underrepresented groups to study
toward advanced degrees in physics.